Conference: Groups in Geometry, Analysis, and Logic

This award is to support participants to attend the workshop: Groups in Geometry, Analysis, and Logic, to be held at Vanderbilt University in May 2025. The organizers plan to hold a series of workshops at Vanderbilt University under the common theme annually. The primary objectives of these events will be to foster collaboration among researchers in these fields, identify compelling research problems, and provide educational opportunities for graduate students and early-career researchers.

The inaugural edition of the workshops will bring together up to 50 researchers for a five-day event at Vanderbilt University in May 2025. The main focus of this first workshop is to prioritize topics at the interface of group theory and logic. The following distinguished mathematicians, including two International Congress of Mathematicians speakers, will give teach mini-courses: Isaac Goldbring, Thomas Koberda, Andrew Marks, Katrin Tent, and Simon Thomas; these mini-courses will cover the necessary background and review recent developments in areas of current interest. In addition, the workshop will feature invited research talks, problem sessions, and small group discussions. More information can be found at https://sites.google.com/view/groups-geom-analysis-logic2025